Instrumentation for Instruction in Contemporary Analytical Science

9451709 Perone The Department of Chemistry is acquiring instrumentation to effect transformation of the traditional sophomore quantitative analysis into a course on modern analytical science. We are developing a course where the basic underlying theme is exposure to concepts, problems, issues, and procedures contained in a real, operating, modem analytical laboratory. The key to achieving this is to provide laboratory investigations which expose lower-division students to the broad range of modern analytical technology. Among the laboratory investigations crucial to accomplishing this is the commitment to addressing organic, biological, and environmental studies, instead of the traditional emphasis on inorganic samples. The types of investigations include: separations science; multi-element and trace analysis; and combined physical & chemical characterization. Because of its prominence in contemporary analytical practice, separations science receives the highest priority. We emphasize HPLC because it is most consistent with the students' laboratory experience at this level and because of its relevance to subsequent courses. For the multi-element and trace analysis experience we have selected two approaches: analytical voltammetry and atomic absorption. Analytical voltammetry is selected because it is consistent with the students' experience with solution chemistry; it provides an inexpensive introduction to multi-element trace analysis, (stripping voltammetry); it can be applied to both metallic and to organic/biochemical analytes; and it establishes the technique as a detection approach for HPLC. Atomic absorption is selected because it provides a more nearly standard commercial laboratory technique for elemental analysis; it exemplifies fundamental spectroscopy principles; and it provides broader applicability to elemental analytes than voltammetry. Superimposed on students' experience with modem technology will be laboratory conduc t based on Federal Good Laboratory Practice guidelines.